ITR: Collaborative Research: Processor Architectures for Web Switches

This project, which is a collaborative effort between the University of
California at Riverside and Los Angeles, focuses on processor and
system architecture issues for Web Switches. Web switches are network
processing elements that modify network traffic based on content.
These devices are frequently used to provide load balancing between
functionally equivalent servers as well as cryptographic services; in
in the future will be used for a host of new applications including
active security and multimedia trans-coding. This project will begin
by developing a benchmarking framework that can be used to evaluate
the performance of Web switches. The research will then use advanced
processor simulation tools to study architectural tradeoffs in the
face of the benchmark workload. In particular, the researchers will
focus on the efficacy of hardware accelerator blocks that have been
proposed. Finally, work will be completed to implement the workload
and capitalize on acquired knowledge in the context of an existing
test bed for network processors.